Acquisition, Processing and Interpretation of Marine Seismic Data (Ocean Science)

Dr. McNutt will learn the theory and techniques relating to the acquisition, processing, and interpretation of marine seismic data. This will allow her to make maximum use of seismic data she has collected or plans to acquire from French Polynesia. Dr. McNutt will teach a graduate course on the origin of depth anomalies in the ocean basins. The course will be designed to illustrate the importance of hypothesis testing and multi-disciplinary approaches to problem solving. She will also organize an informal brown bag seminar series which will provide women graduate students and junior staff members with the opportunity to hear from more senior women scientists about their various research projects and different approaches to balancing personal and professional activities. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.